Towards a Science of Database Systems

IIS-0639106
Richard T. Snodgrass <[email]>
University of Arizona

Towards a Science of Database Systems

This research takes a scientifically rigorous approach to an area previously
dominated by the engineering perspective, that of database query
optimization. The goal is to understand cost-based query optimizers as a
general class of computational artifacts, to develop insights and ultimately
with predictive theories about how such optimizers behave.

The research focuses on one aspect, that of cardinality estimation. In
determining the optimal query evaluation plan for a submitted query, the
optimizer estimates the size of the output produced by each operator of each
candidate plan. An established DBMS has been observed exhibiting "flutter,"
in which the query evaluation plans jump around or even alternate back and
forth as inevitable cardinality estimate inaccuracies increase. This project
evaluates the theory that the flutter arises out of unanticipated
interactions between components of the optimizer. The prevalence of flutter
will be examined across this range of DBMSes, to see if that prevalence
(measured as percentage of queries exhibiting flutter) is positively
correlated to measures of optimizer complexity.

In terms of broader impacts, this research studies a previously unknown
phenomenon of cost-based query optimizers, offering a scientific rationale
for new architectures for query optimization that explicitly take into
account uncertainty. In doing so, it introduces a new perspective (science),
adding to the existing mathematical and engineering perspectives now used
prominently in database research, helping to realize Herbert Simon's vision
of "sciences of the artificial." The results will be disseminated via the
project Web site http://www.cs.arizona.edu/soc/sodb.